ELITE Program: Enhancing LIves through Technology and Engineering

Engineering Technology (58)

The Enhancing Lives through Technology and Engineering (ELITE) scholarship program helps to increase associate and baccalaureate degrees among traditionally underrepresented but academically talented students. A multidisciplinary team of faculty and campus-wide student support specialists are recruiting a cluster of 15-25 scholars with a focus on retention and mentoring that will lead to graduation and ultimately placement in the workforce. This program provides a pathway for Project Lead the Way high school graduates to complete a degree in technology. Scholars have an opportunity to display and enhance their technical skills through individualized internships. Project efforts are disseminated in local, regional, and national education forums.